GOALI: Semiconductor Quantum Well Devices for High Speed Image Correlation Applications

9610044 Garmire An optical correlation system will be demonstrated operating at MHz level frame rates. This high speed system will provide a practical optical correlation system for image processing, with potential applications in optical inspection and machine vision. The proposed project leverages on recent developments in nonlinear semiconductor quantum well devices, and is a collaborative effort with Sanders' Microwave Elect